Factors Mediating Bacteria-induced, Postembryonic Development

Research on the developmental biology of animals has provided a rich data
base focused principally on how the interactions among the genes of an
individual orchestrate a program that results in the ultimate form and
function characteristic of particular species. In contrast, despite the
fact that all animals have, and perhaps require, the establishment and
maintenance of stable associations with bacteria, an understanding of how
these relationships integrate into the developmental programs of the host
animals remains rudimentary . Broad questions include: how does the
embryonic period prepare the tissues destined to interact with
environmental bacteria so that they successfully establish a relationship
with only the specific subset of bacteria that associate with a given
animal species? What processes characterize the progression of the
interaction from the initiation phase to the mature, stable association?
And, what genes are co-opted from other developmental processes to mediate
these interactions, and what genes are unique?

The cooperative association between the sepiolid squid Euprymna scolopes
and its luminous bacterial partner Vibrio fischeri has proven to be an
effective model system with which to examine the 'dialogue' between the two
disparate genomes. As with most animal species, there is no direct
interplay between the host squid and bacteria during embryogenesis.
Nonetheless, during this period a complex set of tissues arises in the
developing squid that readies the animal, upon hatching, to interact with
environmental V. fischeri cells. Within minutes to hours following
hatching, the juvenile host is colonized, and this benign infection
triggers a dramatic morphogenesis of the host light organ. Most notably,
an extensive, bacteria-induced program of cell death ensues that targets
specific host epithelial cells. Most notably, bacteria-induced cell death
results in the loss of superficial epithelial structures that appear to
ensure a rapid, successful colonization of the nascent light organ.
Subsequently, the bacterial light organ forms those tissues essential for
the mature, functional symbiosis; i.e., tissues that will function to
modify the bacteria-produced light are elaborated that allow the host to
use the luminescence in its behavior. These three morphological stages in
host organ development, i.e., embryogenesis, infection and maturation, are
coordinated with changes in gene expression of the bacterial symbiont.
During the infection, the host light organ environment induces the bacteria
to luminesce, lose their flagella, and decrease in size.

Taken together these complex developmental changes in both host and
symbiont suggest the presence of a coordinated, reciprocal interaction
similar to that described for the development of the leguminous plant
symbioses with nitrogen-fixing bacteria. The work proposed herein will be
among the first studies that will examine the signals underlying such
reciprocal interactions in an animal-bacterial association. The specific
objectives of the current project are to : 1) determine the identities of
the bacterial signals that induce cell death and inhibit further cell
proliferation of the host's superficial epithelium; 2) define the factors
that mediate bacterial attachment to crypt cells that are responsible for
crypt cell development; and, 3) identify the bacteria-induced host genes
that are differentially expressed during the early developmental stages of
the symbiosis.